ITR: Proactive Self-Tuning Systems for Ubiquitous Computing

A system called Aura will be designed, implemented, deployed and
evaluated. Aura will exploit the abundance of computing resources
made possible by Moore's Law to reduce demand on the scarcest
resource, human attention. Aura is targeted for environments
involving wireless communication, wearable or handheld computers, and
smart spaces.

The research spans every system level: hardware, operating system,
applications and end users. Aura applies two broad concepts. First,
is proactivity, or the ability of a layer to act in anticipation of
requests by a higher layer. Second, is self-tuning: layers adapt by
observing the demands and adjusting performance and resource usage to
match. Both techniques contribute to lowering demand on human
attention. These ideas will be evaluated through controlled
experiments and live use by a small community. The metrics used in
evalutation include both traditional computer systems metrics plus
user-centric metrics.

There are three major research thrusts. First, operating system and
networking capabilities required by Aura-like systems are
investigated. Second, how high-level user intent can be captured and
exploited for proactivity is explored. Third, how contextual
information can be used is examined. A unique aspect of the research
is its tight integration with education since the Aura prototype will
be used in graduate-level courses.